Robotic Photometry of Magnetically Active Stars

The proposed program consists of two research efforts: An investigation of luminosity changes and magnetic activity in solar-type stars; and an investigation of the systematic effects of spots in chromospherically active stars. As participants in the former project, an astronomer and an engineer and several minority students at Tennessee State University will construct and operate a 0.8-m robotic telescope at Mount Wilson Observatory near Pasadena, California. The objective is to gain insight into the short and long-term behavior of solar activity, especially how the magnetism and luminosity of the Sun change over intervals of decades to centuries, by studying an ensemble of solar-type stars over a much shorter time interval of a few years. Additional insight into the evolution of magnetic activity and luminosity over the Sun's entire main-sequence lifetime may be gained by studying other lower main-sequence stars with a variety of masses and ages. This detailed study of magnetic and luminosity variations of stars will have far- reaching consequences for an understanding of the physical principles of the solar-stellar connection and for assessing the uncertainties and true importance of the Sun's potential influence in mean global temperature change models, which have so far based their predictions of global warming on the assumption of a constant Sun. By combining spectra with the photometry, the structure of spots (namely whether they consist of a single large dark area, as suspected, or several smaller dark areas close together) will be determined by another group of astronomers and minority students at the university. This is made possible by the fact that information about dark spots on chromospherically active solar-type stars is poised to undergo a revolution as the result of the extensive observations now piling up from automatic telescopes. These data will allow many individual spots to be identified and studied from their emergence to their demise. As a result of the project and related ones, scientists will finally be able to know just how properties of these spots compare with those of sunspots, to find how chromospherically active stars respond to having 10-30% of their surfaces blocked by dark areas, to assess just what effect-if any-magnetic faculae have on these stars' luminosities, and to determine whether such very active stars really do have cycles of activity like the solar cycle.